Technology for Science

A series of design challenges will be developed to motivate high school students of all abilities to study science in the context of practical problem-solving. Students will research, design, construct and evaluate to practical problems that intrigue them. The challenges will draw on information from across the range of traditional science topics. Solutions will arise from group discussion and information analysis. These materials are to augment and consolidate science learning and, mode importantly, generate process and practical skills, transferable to other circumstances, in team work, information gathering and processing, evaluation, and application of knowledge to practical situations. Sample assessment strategies for working with groups of students of diverse abilities will be developed. To help teachers and students obtain manageable ideas, a "Source Book" will be produced. In addition, a teacher Resource Guide, suggesting sources of materials, giving technical advice and linking the challenges to science topics, will be provided.